Innovative Machinery Design to Process Discontinuous Long Fiber Composites

The objective of this SBIR Phase I research award is to examine the feasibility of designing and manufacturing equipment which will process advanced resign discontinuous long fiber composites (1/2 to 2 inches in length) in a controlled environment. This molding equipment should maintain the fiber length, orientation, dispersion and wet out, thus improving interlaminar shear strength, impact resistance and fracture toughness. This goal is to demonstrate that this machinery will be able to mold recycled resin into a usable quality product when combined with discontinuous long fiber composites.